DDEP: Ecological and Evolutionary impacts of Nile tilapia (Oreochromis niloticus) on the Kafue River, Zambia

Controversy surrounds the global dissemination of Nile tilapia (Oreochromis niloticus), reflecting tension between possible negative impacts on native fish production relative to the socio-economic benefits of Nile tilapia aquaculture. The objective of this Doctoral Dissertation Enhancement Project is to inform this global debate by quantifying the impact of Nile tilapia introduction on a native Oreochromis fishery. The central hypothesis of this case study on the Kafue River, Zambia, is that introduced O. niloticus out-compete native O. andersonii males for mates, driving directional hybridization which may alter fisheries production in the long term. Field sampling for genetic detection of hybridization coupled with competition experiments will test this hypothesis by quantitatively parameterizing models which will estimate the differences in somatic and population growth rates between parental and hybrid types.

By developing collaborative research with foreign partners, such as University of Zambia lecturer Dr. Cyprian Katongo and Zambian master's students, this project contributes to the underlying doctoral dissertation through advising, planning and experimental execution. This will be the first research to experimentally investigate ecological linkages between Nile tilapia invasion in Africa and sustainable fisheries production, thus improving the intellectual merit of the dissertation. Moreover, field sampling will extend the long term fishery dataset for the Kafue, which is essential to developing this river as a case study.

Broader impacts derive from strong collaborative partnerships with the University of Zambia, Zambian Department of Fisheries, and The World Fish Center. These partnerships ensure research will inform decisions about the introduction of Nile tilapia relative to the sustainable development of aquatic resources in Zambia and worldwide. This proposal serves as the seed for a larger collaboration and further NSF support by informing the specific design of experiments in a future proposal. Further, it provides a US graduate student the opportunity to engage in international collaborative research.

This award is being funded by NSF's Office of International Science and Engineering.